Electronic Packaging and Materials

EEC-9700705 ABSTRACT This award provides funding to the University of Washington, under the direction of Dr. Minoru Taya, for the support of a Combined Research-Curriculum Development project entitled, "Electronic Packaging and Materials." This project's goals are to establish an interdisciplinary research-curriculum on electronic packaging and materials (EPM) at the University of Washington. A curriculum of four courses with materials supplemented by new research results will be designed for teaching advanced undergraduate and first-year graduate students as well as engineers from local and regional industries as a part of the existing Televised Instruction in Engineering (TIE) system.